US-Australia Joint Seminar/Workshop on the Cytoskeleton: ItsFormation and Role in the Growth, Differentiation and Structure of Wool and Hair; Adelaide, Australia; Dec. 1987

This award will support the travel of eight United States scientists to a workshop on the cytoskeleton and its formation and role in the growth, differentiation and structure of wool and hair. The workshop will be held in Adelaide, Australia, December 7-11, 1987. Dr. Robert D. Goldman, Northwestern University School of Medicine, and Dr. Tung-Tien H. Sun, New York University School of Medicine, are the U.S. organizers planning the workshop with Dr. George E. Rogers, University of Adelaide, and other Australian members of the Committee. The purpose of the workshop is to assess the use of hair and wool growth as a model system for studying the structure and function of the major intermediate filament (IF) proteins, in particular the keratins. Intermediate filament proteins are major components of the cytoskeletal system of all mammalian cell systems and keratins are the most well characterized of all of the intermediate filament proteins. Discussed at the workshop will be the structure and function of the cytoplasmic keratins and the newly described complexes of keratin-like proteins within the nuclear matrix, the lamins, as well as the microbiology of the keratin system including the characterization and regulation of the genes encoding these proteins. The result of the workshop will be an increased awareness of the scientific activities going on in the countries represented and greater possibilities for collaborative research between the participants. This meeting will bring together for the first time Australian keratin experts with investigators from the U.S. having expertise on the cellular and molecular aspects of the cytoskeleton of eukaryotic cells. The Australian Government Department of Science has already approved and funded support for the Australian participants. The NSF Program Director for Developmental Biology has recommended this activity at a high priority level.